Star Formation and Evolution of Nearby Galaxies

This award supports the continuation of a long term study of the stat formation properties of nearby galaxies, with special emphasis on those observations which are most relevant to understanding galactic evolution. Dr. Kennicutt is one of the world leaders in this field of endeavor, and his investigations will include studies of how the rate of formation of massive stars relates to the physical properties of the interstellar medium. He will also investigate the properties of HII regions in a variety of galaxies, to study the influence of variations in extinction and the stellar initial mass function.